Theoretical Investigations of Atoms and Electrons in Strong Radiation Fields

It is proposed to carry out collaborative investigations involving scientists at the University of Rochester, and from the General Physics Institute in Moscow, USSR. Investigations will be carried out on several topics of common interest including: 1.) Multiphoton ionization and electron scattering processes, and 2.) Strong-field radiative effects in atoms.